Wave Particle Interaction in Magnetized Plasma

Non linear interactions of electrostatic waves in a magnetized plasma are studied using a combination of laser induced fluorescence and modern plasma probe techniques. The research is designed to examine the consequences of chaotic particle orbits on non linear plasma behavior such as wave mixing and flow generation.